Galaxy Kinematics with Integral Field Spectroscopy and the Hobby-Eberly Telescope

Abstract BERSHADY, M. A. AST-9618849 Funds will be used to design, build and install two- dimensional fiber-optical arrays into the 9m Hobby-Eberly Telescope's Medium Resolution Spectrograph. Two arrays will be built to optimize integral-field spectroscopy for kinematic studies of individual nearby and moderately distant galaxies. One array spans over 30 arcsec using 1 arcsec fibers to densely sample slits at 4 position angles (R < 10,900). The second array spans 15 arcsec using 0.5 arcsec fibers to densely sample a core area of ~60 square arcsecs (R < 21,800).